Bio-Physical Interdisciplinary Trophic Studies (BITS-2)

WPC4 2 B P Z Courier 10cpi #| x w x 6 X @ 8 ; X @ HP LaserJet III-Change HPIIILAS.PRS x @ , \ , ||X @ #| x 2 B V P Z F ` Courier 10cpi ? x x x , w x 6 X @ 8 ; X @ HP LaserJet III-Change HPIIILAS.PRS x @ , \ , ||X @ 2 2 9316124 Zahuranec SUBJECT: Bio Physical Interdisciplinary Trophic Studies (BITS 2) Chronic undersampling of the marine environment, including both biological and physical components has been, and remains, a major block to understanding how the marine ecosystem functions and how it will respond to changes, whether natural or anthropogenic. This research directly addresses this problem by applying advanced acoustical technology to the problem of measuring spatial distributions of zooplankton and micronekton at a mooring, and collecting abundance and size data with a high temporal resolution over long periods. There are three specific objectives of this research: 1) operation and maintenance of a recently installed pilot mooring on the Southern California coast, 2) development of a vertical profiling platform to allow collection of long time records with high resolution of vertical fine structure in the plankton and related biophysical variables, and 3) deployment and installation of a mooring for studying zooplankton in the northwest Atlantic on Georges Bank as part of GLOBEC, a component of the US Global and Climate Change initiative.